Development and Implementation of a Biotechnology Laboratory Course

9451295 Martin A compact (15 day) intensive (7.5 hour/day) laboratory-based course in Biotechniques extends the undergraduates' understanding of biotechnology. The course is team taught by three faculty with expertise in each of the areas emphasized in the course: 1) cell and tissue culture and applied immunology; 2) PCR and recombinant DNA; and 3) protein purification and enzyme assay. The course complements previous courses in molecular biology by: 1) utilizing and reinforcing concepts established in Genetics and Cell Physiology, 2) giving students a realistic and significant laboratory experience, and 3) extending the students' exposure to key methods in biotechnology.